The Evolutionary Genomics of Invasive Weedy Rice

PI: Kenneth M. Olsen (Washington University St. Louis)
Co-PIs: Ana Caicedo (University of Massachusetts, Amherst), Yulin Jia (University of Arkansas)

Red rice is a weedy form of cultivated rice (Oryza sativa L.) that competes
aggressively with the crop in the southern U.S., reducing yields and
contaminating harvests with its small, dark grain. Previous assessments of
genetic diversity suggest that some red rice strains are closely related to wild
Asian Oryza species, others resemble Asian domesticated rice, and others show
close genetic similarity to U.S. crop varieties. This project examines DNA
sequence diversity and linkage disequilibrium in genomic regions underlying
several weed-associated traits in U.S. red rice and in randomly selected loci
distributed across the genome. DNA sequence data generated by the project will
be used to compare alternative hypotheses on the roles of foreign weed
introduction, hybridization, and selection in shaping the red rice genome. These
data will be important in determining the origin(s) of the weed and the genetic
mechanisms by which it adapts to U.S. agricultural fields. These insights can
provide information towards devising effective weed control strategies.

Access to project outcomes:
DNA sequence data generated from the project will be available through Genbank (http://www.ncbi.nlm.nih.gov/) and Gramene (http://www.gramene.org/), as well as a project website accessible via http://biology4.wustl.edu/olsen/.